Fourth International Workshop on TAU Lepton Physics (TAU 96) Estes Park, Colorado, September 16-19, 1996

9601257 Smith This grant provides partial support of an international Workshop on Tau Lepton Physics (TAU96), the fourth in a series on that subject. Previous conferences were held in France in 1990, US in 1992 and Switzerland in 1994. About 100 particle physicists attend. Results are presented from recent experiments at LEP at CERN, SLD at SLAC, BEPC in Beijing, and especially to be noted, at CESR, the facility at Cornell University supported by NSF. ***